Engineering Research Equipment Grant: Laser Doppler Anemometry System for Unsteady Three-Dimensional Flowfield Research

This Engineering Research Equipment Award is for a Three- Component Fiber-Optics Laser Doppler Anemometer and associated equipment. It will be used to explore the hydroacoustic properties of the transitional regime in boundary layer flow where the flow becomes turbulent. The research bears on noise generation in pumps and fans, and the nature of acoustic influences on turbulence.